Collaborative Research: Understanding substrate limitation and Lithium and Silicon isotope fractionation during secondary clay formation in marine systems

A long-standing topic of investigation in the field of chemical oceanography is understanding the processes that deliver elements to, and remove them from, seawater. There has long been a "missing sink" in the global marine silicon (Si) budget in that removal to sediments did not appear to balance the inputs from rivers. Several decades ago, it was postulated that "reverse weathering" in marine sediments could be this missing sink. In this process, the weathering process that takes place on land, whereby silicon is removed from minerals and dissolved in water, would be reversed and these minerals would be reconstituted in marine sediments through the formation of clays. Evidence for this process was very difficult to obtain, and only recently have studies using advanced measurement techniques shown that the global magnitude of marine reverse weathering could account for all the missing sink term in the global Si budget. If validated, this means reverse weathering would represent the largest individual sink for marine Si identified to date, with most of this burial occurring in a relatively small area of the ocean, the land-sea interface. Moreover, the continued upward revision of the marine reverse weathering rate has implications for the sequestration of other elements (e.g. iron, aluminum) and for other coastal processes (e.g. ocean acidification, as carbon dioxide is a byproduct of the reverse weathering process). This project aims to understand the most important factors affecting how fast reverse weathering occurs, and developing new approaches to evaluate this process in the field environment. Beyond the scientific pursuits, this project will support an early career researcher, a postdoctoral investigator, a graduate student, and undergraduate interns. It will also support high school outreach through science fair participation and annual scholarships for students wishing to pursue Marine Science education. This project will develop a community outreach activity to be used annually during the Atlanta Science Festival, Georgia's biggest science fair that showcases science and technology to the public. Finally, it will build capacity for silicon isotope measurements in the U.S.

In this project, the investigators propose to understand the driving factors of marine secondary clay formation and facilitate the determination of reaction degree in the field using a novel dual silicon and lithium stable isotope approach. The overarching goals are: 1) to better constrain the geochemical factors, kinetics, and mechanisms involved in secondary clay formation from diatom-produced silica (bSiO2); this will be done by conducting controlled laboratory experiments using pure mineral phases, diatom bSiO2, and artificial seawater; 2) to test the validity of the isolated geochemical factors by conducting mesocosm incubation experiments using field sediment materials, diatom bSiO2, and seawater; and 3) to experimentally determine whether laboratory-derived Li and Si isotope fractionations are valid during secondary clay formation under marine sediment conditions. This work addresses one of the eight Ocean Sciences Priorities identified in The National Research Council's 2015-2025 Decadal Survey of Ocean Sciences, specifically "How have ocean biogeochemical and physical processes contributed to today's climate and its variability, and how will this system change over the next century?" These results have fundamental importance to understanding the factors regulating marine elemental sequestration (e.g. Si, C, Fe, Al, Mg, K) and those driving global climate through oceanic CO2 evolution, a byproduct of the reverse weathering reaction, in marine sediments.